RAPID: Exposure risk for cyclone-induced flooding and bacterial pathogen emergence

Natural disaster events create major challenges for communities, infrastructure, ecosystems, and public health. Floods, wildfires, and volcanic activity can alter environmental conditions in ways that may unintentionally increase human exposure to microorganisms such as bacteria. Hawai‘i represents an important natural laboratory for understanding these processes because of its unique island geography, ecological diversity, and recent history of major natural disasters. This project addresses a fundamental question: how do large environmental disturbances reshape microbial communities and influence potential risks to human health? The research focuses on understanding whether cyclone-driven flooding promotes the emergence and spread of environmental bacteria capable of causing lung disease. This work advances the national interest by improving scientific understanding of how changes to environments can affect public health and inform disaster preparedness and recovery efforts by providing new knowledge that may reduce risks for vulnerable populations particularly in the context of lung disease. The project also promotes science education and workforce development by engaging high school students and their mentors, university trainees, and community scientists across Hawai‘i in authentic research experiences spanning microbiology, genomics, bioinformatics, and artificial intelligence applications.

This RAPID project investigates the impacts of the March–April 2026 Hawai‘i Kona Low cyclone flooding events on environmentally acquired respiratory pathogens using nontuberculous mycobacteria (NTM) as a model system. NTM are naturally occurring bacteria found in water and soil that can cause chronic lung disease, and Hawai‘i consistently experiences among the highest rates of NTM lung disease in the United States. Building upon a decade of environmental surveillance and whole genome sequencing datasets collected before and after prior natural disasters, including the 2018 Kīlauea eruption and the 2023 Lāhainā wildfire, the project will examine whether flooding alters NTM diversity, distribution, and adaptive characteristics. Approximately 2,000 environmental samples will be collected longitudinally across the four most populated Hawai‘i islands from flood-affected natural and built environments. Microbiological culture, molecular identification, whole genome sequencing, comparative phylogenomics, and antimicrobial resistance analyses will be used to characterize pathogen emergence and evolutionary adaptation. The project also advances NSF priorities in biotechnology and artificial intelligence through NTM genomic analyses and student-led development of machine learning approaches to improve prediction of antimicrobial resistance patterns. Results will generate foundational knowledge on how environmental disturbances shape pathogen evolution, improve understanding of environmental drivers of respiratory disease risk, and contribute to disaster-response strategies applicable to communities in Hawai‘i and beyond.